Visual Perception of Spatial Structure

Almost every object one sees is visually incomplete in the sense that at least part of it is hidden from view by its own visible surfaces and/or by those of closer objects. This project will study how people's visual systems accomplish this task. The research will employ the "primed matching paradigm", in which people match two figures, as quickly as possible, for physical identity shortly after seeing an initial "priming" display that depicts a figure partly hidden from view. The pattern of response times to different shapes in this task can then be used to infer how people have completed the image of the hidden object in the priming display. The results should be useful in answering questions about the process of visual completion and in constraining theories about how that process unfolds in time. Such questions include the following: (1) How long does the completion process take? (2) How "completely" are objects completed? (3) Are the texture and color of the object completed as well as its shape? (4) What factors influence the way that shapes are completed? This methodology can be extended to questions concerning other important problems of visual perception, such as how people see depth in scenes and how they perceive the transparency of objects.